NMR Studies on Scorpion Neurotoxins

Scorpion venoms are complex mixtures that contain a large number of small basic proteins. These neurotoxins interact with the sodium channels of excitable membranes to enhance the inward sodium current and to delay sodium current inactivation. Their toxic effects are a consequence of the depolarization of receptive cells. The present investigation is part of a continuing multidisciplinary program to elucidate the structure-function relationships of various toxins derived form the venom of the scorpion Centruroides sculpturatus Ewing (CsE). Using NMR spectroscopy in combination with distance geometry and molecular mechanics refinement methods, the solution structures of various homologous toxins from CsE will be determined. These studies will test a number of hypotheses related to the proposed structure-function relationships among these neurotoxins. These studies will also be extended to some purified toxins from the venom of L. quinquestriatus for which detailed information about receptor binding sites is now becoming available. These studies will provide the background information necessary for the use of neurotoxins as structural probes of sodium channels in biomembranes.